Overcoming Barriers to Collaborative Research

ENG-9728967 Rosenberg, Allison This award is in support of a two-day workshop, conducted as a joint undertaking by the Government-University-Industry Research Roundtable (GUIRR) and the Committee on Science, Engineering, and Public Policy (COSEPUP), will examine the primary stumbling blocks to effective partnering between research organizations in the university, industry, and government sectors. The workshop will utilize a case study approach to feature real examples of institutional experience. The objectives of the workshop are to identify the most destabilizing factors (operational, cultural, or otherwise) impeding collaborative research across sectors, and to explore and disseminate information about constructive and practical approaches to solving those problems.